ITR-SCOTUS: A Resource for Collaborative Research in Speech Technology, Linguistics, Decision Processes, and the Law

This project will create a digital audio archive that will enable
scientists in several fields to approach novel research issues in speech and language
studies, issues in group decision-making, and issues at the leading edge of
human communication scholarship. The Supreme Court of the United States
(SCOTUS) has been recording its public proceedings since 3 October 1955.
These recordings - now in the National Archives - span nearly five decades
and consist principally of oral arguments in which justices and attorneys
engage in various forms of persuasion and communication between bench and
bar and, obliquely, among the justices themselves. The arguments have been
transcribed professionally across the entire period, creating a matchless
collection of audio materials coupled with highly accurate transcripts. The
audio - along with other activities captured on audio such as the
announcement of opinions - offers a unique opportunity for researchers
across a wide spectrum of disciplines to engage in novel and transforming
research projects that were once thought beyond the reach of investigators.

The chief result of this work will be a complete and continuing archive of
more than six thousand hours of SCOTUS audio. It will provide synchronized
(i.e., time-coded) transcripts of the collection, identify and tag
individual speakers, build new mark-up tools for these new domains, and
share the corpus with researchers and faculty. The result of this
interaction among political scientists, legal scholars, linguists, and
computer scientists will yield: new knowledge in the modeling of
multi-party discussions with complex goals, novel strategies in small group decision
process analysis, and path-breaking approaches to extended collaborative
commentary addressing the dynamics of human communication.

The SCOTUS archive will be maintained as a shared public resource to
enhance study and understanding of the Supreme Court of the United States. It will
be available to anyone with World Wide Web access. Based on past
experience, principal audiences include: researchers across diverse domains, teachers
and students, lawyers and litigants, and the visually- and
hearing-impaired.

Today, more than a million unique users access selected SCOTUS materials
each month. With a complete and updated SCOTUS archive and improved ability
to query and search, the number of users should expand substantially.

By exploiting common interest and beneficial interactions among diverse
research communities, this project will create a vast collection of digital
objects. Working with partners experienced in data-sharing, the effort aims
at revolutionizing the ability to collaborate with physically distributed
teams of researchers and their students.